Mathematical Sciences: Reciprocal Diffusions, Stochastic Differential Equations of Second Order and Conservation Laws

This project concerns the study of reciprocal diffusions, second order stochastic differential equations and system of nonlinear conservation laws. The Principal Investigator has recently developed a theory of second order, reciprocal diffusion processes. This generalizes the well known first order theory of Markov diffusion. First and second order are with respect to time differences and differentiations. The Principal Investigator has shown that a reciprocal diffusion process satisfies a stochastic differential equation of second order appropriately defined. The density, mean momentum and mean momentum flux satisfy a system of nonlinear conservation laws similar to those of fluid mechanics. Applications of these ideas in stochastic integration, fluid mechanics, stochastic optimal control, and quantum mechanics will be explored.